Head-driven Phrase Structure Grammar: An Investigation in Linguistic Theory and Its Computational Implementation

This project in linguistic theory is investigating the possibilities and problems of an explicit theory of linguistic syntax and semantics which operates on a single level of representation, with rules with strictly defined and restricted formal properties. The basic research focuses upon a set of interrelated issues in the areas of syntax, semantics, and pragmatics. The first set has to do with how information about syntactic dependencies determines surface order and (more generally) with characterizing the combinatorial possibilities available to natural language in formal and computational terms. The second set of issues concerns the representation of the syntactic dependencies that arise in natural language. The goals of the project with respect to semantics are to articulate the logical and ontological foundations of a theory which makes computational constructions out of mental entities.